Preparing Undergraduate Engineers for Research in Biophysical Systems

A REU site is established to provide the undergraduate engineering student a research experience in biophysical systems. The objectives of the program are to 1) develop the mental processes of the student to identify and creatively solve research problems in biophysical systems, 2) provide research examples through seminars, literature reviews and active interaction in research projects with faculty and industrial personnel, and 3) enhance the written and oral communication ability of participating students through presentation of research procedures and findings. The program is designed to supplement the existing strong design component of the curriculum and encourage future research involvement of participating students. Educational programs including seminars, course work and stimulating research projects have been planned to instill an interest in and enthusiasm for future research activities. Several research projects applying biophysical processes have been initiated. A program to locate and actively recruit academically qualified students has been developed to ensure success of the overall education effort.